Equipment: UW NSF Ocean Instrumentation 2025

The University of Washington (UW) requests funds for oceanographic instrumentation that are needed to carry out NSF-supported scientific research on board the R/V Thomas G. Thompson and R/V Rachel Carson, two vessels operating as part of the U.S. Academic Research Fleet (ARF). The specific suite of instrumentation requested includes upgraded computer workstations for the R/V Thompson and R/V Carson’s mapping systems; and an upgraded broadband transducer to replace an aging and decaying system aboard R/V Carson. These instruments will help ensure the vessels maintains their high-level capabilities to support NSF-funded research.

The principal impact of the present proposal is under Merit Review Criterion 2 of the Proposal Guidelines (NSF 23-525). It provides infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance, and operation of shared-use instrumentation allows NSF-funded researchers from any US university or other organization access to well-maintained, high-quality, calibrated instruments for their research. It ensures the collection of high-quality oceanographic data in support of science, reduces the cost of that research, and expands the base of potential researchers.